Modular Wireless Sensor Dense Array for Infrastructure Monitoring

This project is to develop a wireless dense sensor array based on PVDF sensors currently under development for identifying and monitoring the localized damage of infrastructure. The tasks involved in this project are:

1. New PVDF sensors development; the sensor will be installed in the model structure to form a dense sensor array for monitoring the damages of the structure.
2. Develop the smart sensor array by conducting the parallel vibration tests of two identical models structures on the shake-table, making different types and degrees of damages on one model, and leaving the other intact.
3. Develop the smart wireless sensor array: the TCP/IP based data telemetry will be developed in the project. The sensor array will be divided into modules consisting of differently distributed sensors used for monitoring the different members of structure. Each module is connected to a programmed microprocessor. The signals of "Warning", "Danger-low", "Danger", "Danger-high" or "Failure" identified in the sensor modules are transmitted wirelessly via the TC/IP data telemetry to the maintenance central office